Seafloor Observatories Workshop: Opportunities and Challenges

9909960
Isern

The Ocean Studies Board will conduct a community-wide workshop and study to examine the scientific merit of, technical requirements for, and overall feasibility of establishing the infrastructure to implement a system of Deep Earth Observatories on the Seafloor (DEOS). The study will also attempt to gauge the level of support for such a program within the ocean science research community and to what extent DEOS addresses future requirements for conducting ocean science research.

DEOS is a community-developed initiative to promote observatory science from the seafloor, to understand Earth and ocean processes in the temporal domain and complete our spatial imaging of Earth structure. The DEOS effort seeks to coordinate the growing interest in seafloor observatory science among geoscience initiatives such as RIDGE, MARGINS, JOIDES, OSN and CABLE.